Presidential Young Investigators Award: Experimental Investigations of Convective Heat Transfer in Complex Internal Flows

The emphasis of this research is in Experimental Investigations of Convective Heat Transport in Complex Internal Flows. Particularly emphasized is forced convection cooling of electronics, wherein the internal passageways formed by adjacent printed circuit boards promote highly disturbed flow. Other examples of complex, internal heat transfer occur in gas-cooled heat exchangers where tube arrays form regions of through-flow interacting with separated flow and internal cooling of advanced gas turbine blades where heat transfer enhancement devices, such as short pin ins or periodic rib turbulators, are cast into the walls. All of these internal flows exhibit phenomenological features that make them difficult to predict including: (1) regions of separated and reattaching flow, (2) regions containing secondary motions, and (3) high levels of turbulence in the mean flow. This research focuses on experimental studies on three canonical geometries that together exhibit all of these features. These geometries are: (1) the two-dimensional rearward facing step, or surface fence, (2) the two-dimensional channel with repeated rib roughness, and (3) the two-dimensional channel with three-dimensional roughness on one or both walls. The first configuration is the least specialized. In this branch of the research, the effects of free-stream turbulence on the heat transfer in the recirculation, reattachment, and redeveloping boundary layer region are examined. Specifically, the measurements include turbulent heat transfer and, simultaneously, momentum transport, in order to clarify existing models of turbulent diffusion in non-equilibrium wall flows. The role of free-stream turbulence in reattaching separated flows is largely unexplored, even though flow in real devices may be highly "disturbed" due to upstream effects. The second major branch of the research centers on experimental investigations of fully-developed channel flow with regions of separation and reattachment as exhibited by the two-dimensional channel with repeated rib roughness and the channel with three-dimensional large roughness. There is a remarkable unifying relationship between the convective heat transfer in all of these cases. For example, the dimensionless heat transfer rate, the Nusselt number, increases as about the 2/3 power of the Reynolds number in all of these cases. Furthermore, this relationship seems to hold for both small-scale roughness, of certain types, and large-scale protrusions or ribs. The transport phenomena that produce this universal behavior are being examined with the hope of identifying the roles of scale, viscous and molecular diffusion, and turbulent transport.